Computer Research Equipment

A multiprocessor computer will be provided for researchers at the University of Delaware for research in the Department of Computer and Information Sciences. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of parallel languages; program transformations for parallelism; parallelization of computer algebra algorithms; parallel network algorithms; and SIMD-parallel architectures and algorithms.